ACCESS V: 1999 Atmospheric Chemistry Colloquium for Emerging Senior Scientists; Narragansett, Rhode Island; June 10-12, 1999

The Atmospheric Chemistry Colloquium for Emerging Senior Scientists (ACCESS) was established as an institution aimed at recent or expectant Ph.D. recipients on the threshold of independent research careers in atmospheric chemistry. This will be the fifth in a series of Colloquia designed to introduce these young scientists and their thesis and/or post doctoral research to one another and to representatives of the major funding agencies involved in atmospheric chemistry and closely related topics. ACCESS V will be held at Narangassett, RI, June 10-12, 1999, immediately prior to the 1999 Gordon Research Conference on Atmospheric Chemistry in Newport, RI. The colloquium attendants will participate in the Gordon conference.